Culture and Individual Adaptation

This project studies the influence of culture on individual adaptation
through investigating cultural, social-psychological and dietary influences
on individual differences in physiological and psychological adaptation.
Individual differences in variables such as blood pressure, serum lipids,
anxiety and depression have most often been attributed to individual-level
factors such as diet or stressful experiences. This project will use
contemporary culture theory and methods to examine how cultural models
construct shared meanings, which in turn affect the behavior of individuals
and their health status. The research hypothesizes that high cultural
consonance, the degree to which individuals approximate shared cultural
models, will be associated with better physiological and psychological
adaptation, as measured by lower blood pressure and other variables
associated with stress and distress. The research will be done in Ribeirao
Preto, Brazil, a community with a considerable amount of socio-cultural and
dietary variability. The research will take place in four diverse
neighborhoods in three stages: unstructured interviewing will be used to
elicit cultural domains; then cultural consensus analysis will be used to
test for shared knowledge; and finally data on individual psycho-biological
adaptation will be collected from a survey sample. The research will
contribute to our understanding of how individuals adapt in their cultural
setting as well as advance our knowledge of this important region of the
world.